Internet Security Workshop

This award supports a one-and-a-half day workshop to develop a policy framework for deploying security technologies on the Internet. The workshop was recommended at the Federal Networking Council Advisory Council meeting in October, 1995 to provide guidance for Internet planners. This followed the recommendation for such a workshop made by the Federal Networking Council Security Working Group. Workshop participants include industry, Federal and user community representatives. Specific topics addressed include: * Security technologies now available and in development * Security requirements of Federal, industrial, educational and foreign networks and users * Requirements for creation or enhancement of existing institutions to handle crisis response, public keys, etc. * Need for research in security techniques The result is a report detailing the workshop conclusions, and is available in printed form and on the Internet.